NSF Young Investigator

9457883 Blucher This research program will study the properties of elementary particles. One key question to be investigated is the mass and other properties of the "top quark". Another topic will be the nature and origin of the violation of a particular symmetry in one form of particle decay. ***